The Kinetics Mechanism and Dynamics of Oxidation of Organic Molecules on Metal Surfaces

This is a fundamental study of the kinetics and mechanism of heterogeneous oxidation by metals. The work includes determining the identity and reactivity of intermediates formed in the oxidation over group IB and group VIII metals with particular emphasis on the role of oxygen adatoms on the activation of small organic molecules and the further reaction of the intermediates formed. These processes will be studied using a combination of ultrahigh-vacuum techniques and a compatible high-pressure cell. Low-pressure studies of the oxidation of hydrocarbons, amines, nitriles, thiols, and heterocyclic species will provide a broad and general basis for the prediction of reactions encountered in oxidation processes. The overall approach is to activate molecules selectively using oxygen activation and to determine the nature and reactivity of the intermediates formed using temperature-programmed spectroscopy and vibrational spectroscopy. These data are valuable in design of catalytic processes in the chemicals, drug, and petrochemicals industries and also in designing new microelectronic devices electrode surfaces for chemical processing or pollution control.